Engaging the Community to Achieve Success in Engineering (ECASE)

This project is awarding scholarships to academically talented students and is supporting the scholars through a variety of structures and programs in place on campus. Students are being recruited from area community colleges and are targeted for degree completion in electrical engineering. Support structures for participants are specially geared towards the needs of transfer students to ensure their academic success and eventual graduation. This project includes a comprehensive recruitment strategy and a practically oriented academic program with a required industry internship. The students are being actively mentored by faculty and industry partners and students from underrepresented groups are being especially targeted for support.